Planning a Rigorous Experimental Trial of SimCalc's Approach to Increasing Access to Complex Mathematical Ideas

This planning grant will enable the transition to larger-scale, more rigorous testing of a technology and curriculum project (SimCalc) whose aim is to make generally available the mathematics of change and variation by incorporating dynamic, computer-based representational tools into the classroom experience of middle-school children.

SimCalc's aim is to make mathematical concepts such as "rate" become available to students without an algebra prerequisite, and push the boundaries of what K-12 learners can master. SimCalc was developed and tested in variety of settings including some of the lowest performing districts in two states, and one class in which English was a first language for only 35% of the students. The collaborations in the planning process will help design rigorous experiment that will analyze how to produce the desired effects with diverse students in varied educational settings and with teachers who vary in their sophistication about and comfort with technology. Findings from the long-term research could influence an understanding of what "high expectations" are possible to achieve for all students, and the role of technology, curriculum, and teacher support in reaching those expectations.